Catalog of Tsunamis: 1983-1997

9523698 Lander A history of the occurrence and effects of previous tsunamis is the essential starting point in devising an effective mitigation plan and a component of many research efforts. This project will produce a catalog which will consist of descriptions and summaries of all tsunamis since the last one was completed in 1982, and include selected marigrams, tables of heights and effects, location maps, photographs, descriptions and references. It will be organized chronologically, but indexed geographically. Data will be sought from various published sources. The catalog will have uses for planners, and add an important period to the cataloged history for those who need long histories, and provide a easily accessible source of data and references for other scientific users. ***